U.S.-Indo Workshop on New Directions in the Interaction of Energetic Protons with Matter

9512799 Pratt Description: This proposal requests support for the US-Indo Workshop entitled "New Directions in the Study of the Interaction of Energetic Photons with Matter". The workshop will convene in Darjeeling, India, November 1995 and will be hosted for its one week duration by the North Bengal University and its affiliate, St. Joseph's College. The coordinators are Richard Pratt, University of Pittsburgh and Swapan Sen Gupta, North Bengal University. Its subject is the interaction of energetic photons with matter, as in such processes as photoabsorption, photon atom scattering, bremsstrahlung and pair production. Leaders from Indian and US research communities will together examine the opportunities provided by emerging technologies and identify new directions for the research. Scope: The workshop is important considering the interest in this subject that has been generated by the advent of a new generation of synchrotrons. The interaction of energetic photons with matter is a modern field in which there is a long tradition of research in both countries. There is substantial experimental work going on in India in this field and the basis for developing cooperative research activities very strong. Proceedings of the workshop will be published. *** Pakistan and is the next step in developing a relationship between scientists who are doing research in this field. s area of research. ngoing relationship in the exchange of information foin developing . The International Conference on Non- Accelerator Particle Physics will convene in Bangalore, India from January 2-9, 1994. Gaurang B. Yodh, University of California, Irvine and R. Cowsik, Tata Institute of Fundamental Research and Director, Indian Institute of Astrophysics, Bangalore are the organizers. This conference is dedicated to the discussion of the fundamental physics that emerges from diverse areas of non-acc elerator particle physics such as: Solar Neutrino Astronomy, Cosmic Rays, Particle Physics, Neutrino Physics and the Detection of Dark Matter. Substantial progress has been made in these fields during the past five years and it is widely thought that definitive answers to several questions of Physics beyond the Standard Model can now come from Non- Accelerator methods of inquiry. The conferees will review recent developments in the various aspects of Particle Physics, their implications in astrophysical situations, experimental detection of dark matter, theoretical interpretation and empirical and physical models of the large scale structure of the Universe. Scope: This conference will precede a major interdisciplinary research program between the Indian Institute of Astrophysics and the University of California, Irvine. As considerable research is going on in the US in all fields to be discussed at this conference, it will be important for the US researchers to present their work to an international body of some of the most respected scientists from all over the world. ***